Collaborative Research: Theory and Implementation of Semidefinite Programming and Its Application to Combinatorial Optimization

ABSTRACT
0203113/0203426
Burer, Samuel
Iowa State

In a semidefinite programming (SDP) problem, a linear function of a symmetric matrix variable X is minimized subject to linear equality constraints on X and the essential constraint that X be positive semidefinite. Many mathematical optimization problems can be cast as SDP problems including linear programs, convex quadratic problems with convex quadratic inequality constraints, matrix norm minimization problems, and a variety of maximum and minimum eigenvalue problems. In addition, SDP has many applications in combinatorial optimization, engineering, statistics, and robust optimization.

Today, there are numerous algorithms and codes available for solving SDPs, and these methods can be loosely grouped into two classes: second-order interior-point (IP) methods and first-order nonlinear programming (NLP) methods. The choice of which class to use for a particular application is determined primarily by
problem size --- second-order IP methods are more efficient on small- to medium-scale problems while first-order NLP methods are better for large-scale problems.